2002 Gordon Research Conference on Colloidal, Macromolecular & Polyelectrolyte Solutions to be held at the Harbortown Resort in Ventura, CA February 3-8, 2002

Abstract
CTS-0130720
A. Gast, Gordon Research Conferences

Partial travel support for Young speakers in the early stages of their careers and for senior graduate students and postdocs are requested for this 2002 Gordon Conference. The major objective of this Gordon Conference is to provide a forum for new and established scientists and engineers in colloidal, macromolecular, and polyelectrolyte solutions to discuss and exchange information. The conference will facilitate discussion and exploration of ideas at the forefront of the many complexities of the charged, macromolecular, interfacial and solutions.

This conference has always had interdisciplinary participation from the engineering, physics, chemistry, and biochemistry communities. An important component of the conference is the inclusion of young scientists and engineers.

The various session in the conference include self assembly on surfaces, self assembly in solutions, ordering and nanostructures, proteins at surfaces, single molecule analysis, DNA sequencing, flow and microarrays, and polyelectrolytes in biophysics.